Hyperbolic Manifolds and Their Groups

A three-manifold is a space where an object can move around in three distinct perpendicular directions. The universe that we inhabit is a three-manifold whose global structure we do not yet understand. Thanks to powerful theorems by Thurston, Perelman, and Mostow, we do know that the geometry of a manifold (measurements of angles, distances, and curvature) is closely tied to its large-scale structure. What is missing at this point is a quantitative understanding of how geometry and large-scale topology determine one another. This project seeks quantitative information of this nature. It contains suitable sub-projects for graduate students.

More specifically, this project seeks to make progress on several fundamental questions involving the geometry of negatively curved three-manifolds and their fundamental groups. One question involves quantitative control on the change in geometry under Dehn surgery, including applications to the cosmetic surgery conjecture. A second question involves understanding Kleinian groups in which two independent elements move a point by a small distance, with applications to bounding the Margulis constant. A third question involves a quantitative understanding of the way in which three-manifold groups act on CAT(0) cube complexes, with an eye toward developing tools for the Cannon conjecture.